Travel: HCC: NSF Student Travel Grant for the 37th Eurographics Symposium on Rendering (EGSR 2026)

This grant will provide partial travel support to about 12 U.S.-based students to attend the 37th Eurographics Symposium on Rendering (EGSR 2026), to be heldJuly 1–3, 2026 at the University of Bordeaux, in Bordeaux, France. EGSR is the premier annual symposium dedicated to rendering research and is organized with the vision of fostering a community of researchers that all converge to this field from traditionally distinct disciplines, including computer graphics, vision, machine learning, physics-based simulation, visual perception, applied mathematics and physics. This proposed program facilitates the participation in EGSR 2026 of undergraduate and graduate students from research labs that traditionally do not attend EGSR but work on closely-related problems; and students that would not otherwise have the resources to attend. The program include students presenting novel research ideas to the wider rendering community. Dissemination of these ideas can have downstream effects including future publications, internship and academic opportunities, and advancing the state-of-the-art in the field. Research topics include physically-based rendering, real-time rendering, appearance modeling, appearance acquisition, global illumination, neural rendering, stochastic estimation, visual perception, image synthesis, and generative methods.

The EGSR 2026 conference chair and program chairs will serve as the committee to select students awarded travel grants. To avoid conflicts of interest, students advised by members of this committee will be ineligible. The selection will prioritize: (1) students that lack funds to attend; (2) students in research labs that traditionally do not visit EGSR but work on closely related problems. Within each category, the selection committee will prioritize students that have not previously attended EGSR and will additionally consider the academic merit of the students. The committee will document its deliberations and the considerations determining their outcome. This program will also benefit society by encouraging the invited students to pursue research and STEM careers and equipping them with research skills and networking opportunities for success in graduate school and beyond.